23rd International Conference on Mathematical Geophysics, Summer 2000

EAR-0002533
Marc Spiegelman

This proposal requests funds to help support travel costs of U.S. participants to the 23rd International Conference on Mathematical Geophysics. This year's conference is titled Extreme Earth Events. The conference focuses on systems that display sudden transitions from quiescent states to crises, extreme events, catastrophic or disastrous instabilities. Examples range from large natural catastrophes such as earthquakes, volcanic eruptions, hurricanes and tornadoes, landslides, avalanches, mass extinctions and catastrophic events of environmental degradation, to the failure of engineering structures, crashes in the stock market, social unrest and economic disruptions on national and global scales, regional power blackouts, traffic gridlock, diseases and epidemics. The purpose of this conference is to provide a forum that allows scientists from a full range of scientific disciplines to interact with each other and with experts in the math and physics community.